AF: Small: The computational complexity of low-depth quantum circuits

Quantum computers have the potential to solve some computational problems dramatically faster than ordinary computers, with possible long-term applications in science, engineering, secure communication, and materials design. However, today’s quantum computers remain limited: they are affected by noise from their environment and can perform only a limited number of reliable computational steps before errors accumulate. This makes low-depth quantum circuits, meaning quantum computations built from only a small number of layers of operations, a central model for understanding the power of near-term quantum technology. This project studies what low-depth quantum circuits can and cannot accomplish, and where the boundary lies between the abilities of quantum and ordinary computers in this limited but important setting. Understanding this boundary is important for assessing the real capabilities of current quantum hardware, guiding the design of future quantum technologies, and identifying which computational tasks may truly benefit from quantum effects.

The circuit model is especially important in quantum computing because it serves as the basis for defining universal quantum computation. Beyond their role as a plausible model of quantum computation in the near-term and their practical relevance, low-depth circuits also play a central role in theoretical physics, particularly in the study of quantum phases of matter. This project investigates the power of low-depth quantum circuits across various settings in complexity theory and quantum computing. In particular, the project pursues the following interlinked goals: (1) studying the power and limitations of low-depth quantum circuits in settings such as computing functions, (2) studying the capabilities of these models in generating important families of quantum states, including those relevant to error-correcting codes, topological phases, and pseudorandom ensembles which have important applications across quantum information science, and (3) evaluating the robustness of these results to noise. To facilitate education on this topic, the investigators of this project will co-develop a course at Tufts University about aspects of low-depth circuits in quantum and classical computing, with material broadly available to the public.